Dissertation Research: Resource and Residence at an AncientMaya Community

This grant permits Ms. Laura Levi, under the direction of Dr. Patrick Culbert, to conduct her doctoral dissertation research. She will carry out archaeological work at the Mayan site of San Estevan which is located in the lowland tropics of Belize. Prior work by Ms. Levi and others has revealed the presence of a large series of prehistoric house mounds which date to the height of Mayan development. Ms. Levi will conduct a survey of the site to determine mound locations. She will also collect surface ceramics and undertake limited archaeological excavation. Through use of aerial photographs, microenvironmental zones will be defined and the size and distribution of mounds related to this ecological variable. Ms. Levi postulates that prehistoric lowland Mayan farming is based of the detailed knowledge of slightly different microenvironmental zones and that success involved use of more than one zone. She also argues that decision making took place on a family or household level, and that household success and size is directly related to the ability to farm more than one zone. Through comparison of house mound location (in relation to microenvironment) and size, it is possible to test this hypothesis. This research has great practical value. The Middle American tropical lowlands today permit human occupation at only low population densities. The ancient Maya lived in the same environments in much larger numbers and inhabited regions for very long periods of time. Understanding of Mayan agricultural practices may permit more effective contemporary use of such regions. This project will also further the career development of a very promising young scientist.